Recognition of Visual Languages

A visual programming language allows the expression of a computation by combining graphical elements such as icons, lines, and symbols. A visual program is a diagram specifying a program. Flowcharts and dataflow diagrams are common examples of visual programs. Visual programming has emerged as a key approach to enhancing computer utilization, particularly by allowing users not familiar with computer technology to create programs. This research is on the underlying theory and technology required to develop compilers and programming environments for visual programming languages. Currently, visual language compilers and visual programming environments are constructed ad hoc, at great difficulty and expense. A goal is to automate this construction using a grammar specification of the visual language. Two key problems in generating a visual language compiler are syntactic and lexical analysis of visual programs. There are three tasks: development of specialized parsing algorithms for restricted classes of visual language; development of incremental parsing algorithms; and development of a model and mechanism for lexical analysis of visual programs. These will lead to a better understanding of the fundamental nature of visual languages, which are not yet well understood.